Acquisition of a 400 MHz Spectrometer and Upgrade of Departmental NMR Facility

With support from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at San Diego State University will acquire a 400 MHz nuclear magnetic resonance (NMR) Spectrometer. This equipment will enable researchers to carry out studies in the following areas: (1) Proton Transfer and Hydrogen Bonding in Organometallic Structure and Catalysis, (2) New Organocopper Reactions: Mechanisms and Methodology, (3) New Scorpionate Ligands for Inorganic Chemistry and The Role of Boron and Iron in Harmful Algal Blooms, (4) High Resolution NMR-Derived Conformations of Molecules of Biochemical Importance, (5) Combined Computational and Experimental Approaches for the Design of Protein-Protein Interactions, and (6) Interactions between Holliday Junction-Binding Molecules and Target DNA.

Nuclear Magnetic Resonance (NMR) spectroscopy is one of the most powerful tools available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact a number of areas, especially biochemistry.